Coordinated Deployment of Seismic Instruments to Record Aftershocks of the September 2010 New Zealand Earthquake

The September 4, 2010, Darfield, New Zealand earthquake is the most damaging
earthquake to strike New Zealand since the 1931 Napier Earthquake. Although no lives were
lost, damage was extensive in the area, particularly in nearby Christchurch, and economic losses
are expected to total over NZ $2 billion. The earthquake is also scientifically interesting and in
many ways surprising. It occurred on a previously unmapped fault in an area that was presumed
to have lower risks than other areas (e.g., the Alpine Fault). The complex source time function
indicates that two or more subevents were involved.One of the most surprising aspects is the
predominantly strike-slip character of the event along a nearly east-west fault. South Island
tectonics are dominated by the Alpine Fault system and nearby, mostly northeast-southwest
striking strike slip faults, such as the Hope Fault. The data from this project will provide a
unique opportunity to study a fault that is very likely quite young and immature, and thus
fundamentally different in character from mature faults such as the San Andreas Fault in
California or the Anatolian Fault in Turkey.

New Zealand and UW-Madison scientists have deployed temporary seismic instruments
to monitor aftershocks. The New Zealand instruments were deployed by GNS Science and
Victoria University staff, led by Terry Webb and Martha Savage, respectively. PI Thurber
arranged for the shipment of 9 RAMP instruments from the IRIS/PASSCAL facility to
Christchurch and sent 2 UW-Madison staff to New Zealand to deploy them. 18 short-period, 9 broadband, and 3 strong motion instruments will be deployed through this joint endeavor. The RAMP deployment will continue until mid January 2011. The data will be made available to the scientific community within the time frame required for IRIS/PASSCAL "RAMP" deployments.

The project will support a postdoctoral student to participate in the deployment, and foster a collaboration with scientific teams in New Zealand. This work is jointly supported by the Office of International Science and Engineering and the Geophysics program.